An International Workshop on Quantum-Classical Correspondence the 4th Drexel Symposium on Quantum Nonintegrability, Sept. 8-11, 1994, Drexel University

9411170 Feng A serendipitous development of theoretical physics in the past decade was the apparent confluence of the central themes of several areas of physics: quantum measurement, quantum chaos, mesoscopic physics and quantum cosmology. Although all these robust areas focus on vastly different aspects of physics, covering atomic-molecular, quantm optics, condensed matter as well as nuclear, particle physics and general relativity, it seems that they all stand on the questions of quantum-classical correspondence (QCC). ***